CAREER: Effective Methods for Finding Software Errors

Software reliability is one of the most important problems in computer
science. A single operating system error can crash the machine. A single
security hole can compromise the integrity of the entire system or, as
software and its errors is replicated, the integrity of entire networks.
This research focuses on practical techniques to effectively find large
numbers of such software errors. Initial results are promising: the
approach has found hundreds of security holes and thousands of serious
errors in the Linux operating system, as well as in large commercial
systems.

The research centers on using static analysis to find errors in source
code. It uses two main techniques: (1) metacompilation (MC) to check
correctness rules (such as ``a call to the lock() function must be paired
with a call to unlock()'') and (2) belief analysis to infer such rules
automatically.

Metacompilation uses programmer-written, system-specific static checkers
to find software bugs. Because these extensions can be written by
system implementors themselves, they can take into account the ad hoc
(sometimes bizarre) semantics of a system. Because they are compiler
based, they also get the benefits of automatic static analysis.

Belief analysis: A major obstacle to finding program errors in a real
system is knowing what correctness rules the system must obey. These
rules are often undocumented or specified in an ad hoc manner.
Belief analysis automatically infers such checking information from
the source code itself, rather than the programmer, thereby avoiding
the need for a priori knowledge of system rules. It works by analyzing
source code to infer what programmers believe to be true and checking
these beliefs for contradictions. For example, if a call to ``lock()''
is paired with a call to ``unlock()'' 1000 times and not paired once,
this is a good indication that the code believes these calls must be
paired, and that the single deviation is an error.

The research will also involve an educational component. The most
significant feature will be heavily involving undergraduates in research.
Empirically, doing so helps them think creatively, independently, as
well as pushing them to go much deeper than a typical class.